Electron Spectroscopy of Spin States in Strongly Correlated Electron Systems

They are requesting funds towards the cost of setting up a new program of research into spin-states in strongly correlated electronic systems in a range of materials prepared by thin-film deposition methods in an ultrahigh vacuum environment. Specifically, they will employ high-resolution (50 meV) angle- resolved photoelectron spectroscopy and STM tunneling characteristics to study the quasiparticle spin states and energy gaps around the Fermi energy in thin films of the new high Tc oxide superconductors, magnetic layers, and related materials showing highly correlated spin fluctuation phenomena. They take as their theme one of reducing dimensionality (i.e. 2- dimensional ultrathin films and surface layers) as a means of exploring the coherence length of spin density fluctuations. Matching funds towards the cost of installing a special multi- source vapor deposition chamber (the Eiko El-10 system) into their existing electron spectroscopic analytical instrumentation is also requested. This will provide them with a flexible facility for insitu film growth and characterization down to the single unit cell thickness level, with provision for controlled oxidation and metal dopant implantation.